Improvement of Surface Science Research Facilities

The Research Improvement in Minority Institutions (RIMI) program was established to provide support to strengthen the research environments and capabilities of predominantly minority institutions or institutions that have substantial minority student populations. Eligible institutions must also have graduate programs in science or programs in engineering. Funding is provided for faculty research in fields of science and engineering supported by the Foundation and for the acquisition of research instrumentation. The University of Puerto Rico-Rio Piedras will use RIMI support to enhance its surface science research facilities. The project will focus on two major areas: (1) Optical and electrical properties of co-sputtered semiconductor and metal-insulator films. This component will include studies of hydrogenated amorphous semiconductor alloys, superlattices and localized gap states; and (2) Optical studies of solid surfaces. This component will analyze the surface enhanced Raman Scattering in granular composites and surface plasmons on rough metal surfaces. The experimental techniques for this project will include the use of Auger electron spectroscopy, electron energy loss spectroscopy, secondary ion mass spectroscopy, X-ray photoemission spectroscopy, light scattering and attenuated total reflection procedures, infrared and picosecond spectroscopy. The principal investigator is a well trained physicist who has published over 40 articles in refereed journals. The Foundation has supported this project because more opportunities will be available for minorities to participate in state of the art surface science research.